"CAREER: Towards Understanding the Temporal Universe"

Abstract - Nemiroff The universe we live in changes continually, but most changes are not easily observed. The planned projects will have a focus on some of the few areas of astronomy where significant change occurs on easily measurable time scales. The study of change may brings clues which have far reaching implications - from the better understanding of the nature of dark matter to the better understanding of the nature of high energy environments. The temporal nature of humanity's understanding of our universe lends itself nicely to public outreach efforts and educational programs. Programs on the following topics will be carried out: Gamma Ray Bursts: The temporal aspects of gamma-ray bursts will be further explored. Previously, there was the successful detection of the existence of time-dilation in gamma ray bursts (GRBs). The precise amount of time-dilation. however, is still unknown by almost a factor of 1.5. The effort will be to work toward increasingly accurate calibration of this important attribute with regard to different samples, systematic errors, and the amount expected from calibration to best-fit cosmological brightness distributions (Log N - Log P). Definitive resolution of the GRB distance scale debate would occur were a gravitational lensing signature isolated. The search for lens detection in GRB data will be extended to all GRB data as it becomes available. The search for new hard GRBs in the BATSE data stream will be extended. Gravitational Microlensing: The temporal aspects of gravitational microlensing will be further explored. Previously, there was success in quantifying the success rate of microlensing (MACHO) searches before results were reported, and predicting the usefulness of finite source lenses in determining the nature of the lenses. Currently, the microlensing searches are entering a new era - one where common single lens, point source events have only statistical value. More complex events, such as those involving binary lenses and finite sources, have become increasingly important as they give more direct evidence of the mass, velocity, and distance to the lens. The effort will continue to study how best to deconvolve mass, distance, and velocity using multiple lens and finite source size effects. The mass and density of Galactic lenses currently implied is controversial and goes to the heart of the Galactic dark matter problem. The effort will include the use of computer simulations to better study which microlensing measurements best deconvolve mass from the amplitude and duration of finite source events, predict which type of MACHO surveys would yield best information about the density and composition of our Galactic halo, and scrutinize public domain data for finite source size effects and implications. Astronomical Debates: Disputes at the forefront of astronomy also change. Two successful astronomical debates have been staged. These modern debates act a natural platform for the teaching of astronomical subjects and for public outreach. Three more debates are planned. Astronomy Picture of the Day (APOD): As the universe changes daily, so does APOD. Each day APOD will display a different astronomically oriented picture on the World Wide Web along with a heavily hyperlinked description. In its 1.5 year existence, APOD has acquired many thousands of readers and has been praised by magazines including The New Yorker. APOD' s archive now contains many of the most famous astronomy pictures. APOD's use in education is shown by it popularity in astronomy class home pages, and its outreach potential by the high access rate from the businesses domain. The APOD's will be expanded, to create an outreach program for cooperating U.S. universities, and to directly incorporate student interns in APOD's daily routine.